NSF Minority Postdoctoral Research Fellowship for FY 1996

This fellowship supports research and training in the area of biophysics. The thermodynamic and kinetic properties of in vitro and in vivo protein folding are being studied by computational and analytical methods using lattice and off- lattice models. The experimental problems being investigated involve protein design, chaperone mediated folding, modeling of realistic protein structures such as for cytochrome c and the analytical calculation of folding rates.